Workshop on Parallel Logic Programming and its Programming Environments; University of Oregon; Eugene, OR; March 4-6, l994

9403574 Tick This award is to support a workshop on Parallel Logic and Functional Programming and their Programming Environments, to be held in March 4-6, l994 at the University of Oregon, Eugene, Oregon. This workshop will host international researchers working in the area of parallel programming languages, compilers and environments. The participation of researchers from ICOT (Institute of New Generation Computer Technology) will be sponsored by ICOT. The workshop participants will participate in stimulating discussions on concurrent computations, concurrent run-time systems and concurrent programming environments for logic and functional programming languages. ***